Mathematical Sciences: The Probabilistic Method

This award supports the research of Professor Spencer to work in combinatorics. Specifically, Professor Spencer is developing the Probabilistic Method for use in dealing with problems in combinatorics. The interplay between discrete mathematics and computer science suggests an algorithmic viewpoint. Many probabilistic proofs of existence supply immediately efficient randomized procedures for the corresponding algorithmic problems, and in some cases these procedures can be derandomized and converted into deterministic ones. The research is in the general area of combinatorics. Combinatorics attempts to find efficient methods to study how discrete collections can be organized. The behavior of discrete systems is extremely important to modern communications. For example, the design of large networks, as in telephone systems, and the design of algorithms in computer science all deal with discrete objects, and this makes use of combinatorial research.